NSF Young Investigator Award

Modern synchrotron x-ray scattering techniques will be employed and evolving structures found in novel condensed matter systems. The ultimate goal of this research program is to extend our "first principles" understanding of statistical and solid state phenomena to the realm of inhomogeneous, non-equilibrium systems.